The Role of the Actin Cytoskeleton in Regulation of Auxin Transport

9318250 Muday Recent evidence from this laboratory indicates that the regulatory or inhibitor binding subunit of the auxin efflux carrier from zucchini is associated with the actin cytoskeleton. In recent years, the role of the actin cytoskeleton has been shown to be more than structural. This filamentous network functions in intracellular movement, polarity development, and integration of cellular signals in a variety of organisms. Although the role of the actin cytoskeleton in the growth and development of higher plants has so far received limited study, the role of actin microfilaments in the environmentally controlled development of polarity of the brown alga, Fucus, has been elegantly described. It is likely that changes in the actin cytoskeleton play equally important roles in the development and environmental responses of flowering plants. The plant cytoskeleton is uniquely suited to act as the signal transducer from the membrane and extracellular matrix, which sense external events, to the auxin transport stream which allows response to these signals. The experiments in this proposal are designed to test the new hypothesis that polar auxin transport is regulated by interactions of the regulatory protein of the auxin efflux carrier with the cytoskeleton. In order to understand the nature of the regulation of auxin transport, the interaction between the inhibitor or napthylphthalamic acid (NPA) binding protein of the auxin efflux carrier and actin must be further delineated. Using molecular probes and basic biochemical approaches, the interactions between the NPA binding protein and the actin cytoskeleton during polar development will be examined. These experiments will be performed using Fucus as a simplified model system. Although it has been more than one hundred years since Darwin suggested the importance of polar hormone transport in plants, the mechanisms by which auxin transport is regulated still remain unclear. The polarity a nd quantity of auxin transported are controlled at the site of auxin efflux from cells. A regulatory protein has been identified which binds specific inhibitors of auxin transport that act at the site of auxin efflux. Characterization of this inhibitor binding protein, and the mechanisms by which it controls auxin transport, is the critical first step in the dissection of the regulatory pathway of auxin transport. ***